Hyperfine Interactions Studies of Novel Forms of Magnetic Order

Professor Hohenemser will examine the effects of non-trivial randomness, finite size dynamics, and the role of magnetism in high temperature oxide superconductors as parts of the research on novel forms of magnetic order. The Mossbauer spectroscopy and perturbed angular correlations of gamma rays are techniques where the investigator has shown their usefulness to study magnetic order and which can be complementary to inelastic scattering. Specifically the research will include: 1) measurements to fit the random field Ising model in Fe1-xZnxF2 below Tc; 2) magnetic order for competing random anisotropy interactions in rare-earth intermetallic compounds; 3) finite size dynamics in graphite intercalated magnetic compounds and; 4) magnetic order in La2 La2CuO4-x and related compounds. xxx